CSR-SMA: Measurement, Modeling and Analysis of Large Complex Data Centers

The complexity of enterprise data centers has grown steadily in recent
years, primarily due to continuous evolution resulting from small
incremental changes to system hardware and software. This project
focuses on a modeling and analysis approach for improving the
manageability of complex data centers. The project focuses on (i)
scalable, adaptive monitoring techniques for very large data centers,
(ii) multi-scale modeling of complex data-center applications, and
(iii) model-driven analysis to predict system performance, bottlenecks
and capacity requirements. The adaptive monitoring approach involves
the use of statistical data mining and learning to dynamically vary
what systems are monitored and when. The multi-scale models involve
capturing system behavior at large, medium and small scales by
modeling application interactions at different levels of abstraction:
at the data center level, at the application level, and at the
individual server level. Model-driven analysis brings together
adaptive monitoring and the multi-scale models for capacity
provisioning, bottleneck detection and performance prediction. The
modeling and analysis techniques will be validated using real-world
data center applications running on a Linux-based data center testbed.
Broader impacts include source code release and sharing of anonymized
trace data to enable further experimentation by other researchers and
the participation of undergraduate students in this research via
summer REU projects.